Summer Training Workshop in Law and Social Science; Denver, Colorado; July 1993

This is a workshop conducted by the Committee on Education of the Law and Society Association, the major professional organization for sociolegal scientists in the United States. It is designed to extend and intensify previous training efforts for approximately 30 new entrants into sociolegal science. In addition to providing social scientific training to faculty with and students anticipating professional degrees from law schools, the summer workshop stresses the interdisciplinary character of the field of law and social science by counteracting disciplinary perspectivism. Attention is given to core debates and questions which serve to integrate the field. Specifically, participants are recruited through advertisements in the relevant scholarly newsletters and a special mailing to 700 individuals to seek applications from minority scholars. Twelve distinguished faculty persons join the thirty participants for the three day workshop. Through sessions which feature small group exchange, hands-on mentoring, and follow-up after the workshop, the workshop enables participants to work through specific research ideas and plans. In addition, the workshop sessions expose participants to the core subfields of law and social science, the relationships and settings for law and social science, and the full range of research orientations associated with sociolegal science. The workshop is significant in providing advanced interdisciplinary training to individuals who are or soon will be teaching law and social science in law schools and social science departments in colleges and universities across the United States. Also, the workshop encourages more minority faculty and graduate students to enter into this interdisciplinary field of teaching and research.